Planning and Scheduling of Multiproduct Continuous Processes

A significant part of the chemical industry has recently started to concentrate on the manufacturing of specialized high value added products. At the same time, there is an increasing trend towards building smaller distributed flexible processes that are located closer to the markets of consumption. With the increased competition and market diversification that is being experienced in the chemical industry, there is a need for improving the planning for allocating limited capital resources for investment and for improving the scheduling in the manufacture of chemicals. The major concerns include not only reduction of investment and of production costs, but also providing improved service to customers by delivering the required products on time. Over the last few years a substantial research effort has been devoted to various aspects of planning and scheduling in batch processes. While planning and scheduling plays a central role in batch processes, the same is often true of many continuous processes that involve the manufacture of a variety of products. In these processes uninterrupted operation takes place with possible change of feedstock or raw material and readjustment of operating conditions for each product. Inventories and transitions from one product to another are major issues. Important industrial applications of continuous processes that produce multiple products include processes for manufacturing various types of polymers (e.g. polyesthers), chemicals (e.g. ketones), and finished products (e.g. paper). In contrast to the area of batch processes, much less research work has been done for scheduling and planning of these multiproduct continuous plants. The objective of this research is to address a number of major subproblems that arise in the scheduling and planning of multiproduct continuous plants. Specifically the following items will be considered: 1. Development of models and solution techniques for the scheduling of multiproduct continuous processes consisting of one or several parallel production lines. The extension of these models and techniques for more complex plant configurations will also be considered, as well as their use for design studies. 2. Development of models and solution techniques of multiperiod planning and design problems for process networks consisting of single product and multiproduct continuous plants. 3. Development of a strategy for the integration of planning and scheduling in continuous multiproduct plants. A major goal in this work will be to develop new systematic techniques to overcome major computational challenges that arise in the modelling and solution of these problems.